Industry/University Center for Nondestructive Evaluation

Nondestructive Evaluation (NDE) is important to industry since it is a means to assure safety, product quality, and a company's image. An Industry/University Cooperative Research Center for Nondestructive Evaluation is initiated at Iowa State University. The initial Nondestructive Evaluation projects are researching the following areas: computer-aided NDE, electromagnetic flaw sizing, development of a model-based ultrasonic NDE system design technology for complex geometries, development of eddy current models for flaw detection and characterization, x-ray image processing, reducing storage of images and increasing processing speed, magnetic inspection methods for nondestructive evaluation of ferromagnetic steels, thermal-wave materials analysis, nondestructive methods for the determination of the thermal history and mechanical properties of aluminum-lithium alloys, effects of defects in composites, detection and characterization of defects in composites, ultrasonic measurement of texture, and ultrasonic standards.